Mechanics of Vibration-Mediated Pollen Ejection in Buzz Pollinated Plants

Buzz pollination is an important agricultural process in which bees use vibrations to release pollen from flowers. This specialized form of pollination is required by about ten percent of flowering plant species, including economically important crops such as tomatoes, eggplants, and kiwifruit. Although scientists have extensively studied the ecological role of buzz pollination, the physical processes that govern how pollen is released remain poorly understood. This project will investigate how flower structures vibrate and how those vibrations influence pollen release. By understanding this process, the project will inform development of technologies to supplement natural pollination and support agricultural productivity and food security. In addition, the award will contribute to workforce development through middle-school summer outreach activities that introduce students to the role of engineering in agriculture. Project findings will also be shared broadly through professionally produced short films designed for public audiences.

Buzz pollination is fundamentally a coupled structure-particle transport problem. Bee-generated vibrations deform a flexible anther, which in turn energizes cohesive pollen grains and drives their migration toward a small exit aperture. However, current knowledge is largely empirical and lacks predictive models that connect excitation, anther structural dynamics, and pollen transport. The project will establish a mechanistic understanding of how dynamic excitation of flexible anthers produces particle ejection. This goal will be achieved through three objectives. First, controlled experiments will be performed to measure time resolved pollen flux and anther deformation under prescribed vibration conditions. Second, a hierarchy of models will be developed, ranging from reduced-order statistical models to high-fidelity discrete element simulations, to identify the physical mechanisms governing pollen motion. Third, particle transport models will be coupled with structural dynamics frameworks of the anther to predict pollen release directly from applied forces and to quantify the energetic efficiency of buzz pollination. In addition to progressing knowledge of buzz pollination mechanics, results from this project advance the understanding of vibration driven transport in confined particulate systems with complex boundary motions.